Receptor Internalization: Endogenous Regulation of Opioid Receptors

Micevych, 9728491 Receptors are plasma membrane associated molecules that recognize intercellular signals. G-protein-coupled receptors are perhaps the most diverse family of membrane bound receptors and mediate important functions in the nervous system such as development, timing of puberty and menopause, and nociception. Dr. Micevych has been interested in studying the mechanisms of cellular regulation of neuropeptide receptors that belong to a class of G- protein coupled receptors. A new methodology, termed "receptor internalization" presents a novel approach for the visualization of receptor activation. Internalization is the sequestration of agonist-receptor complexes into endosomal compartments within cells. This is important since removal of receptors from the plasma membrane prevents further stimulation by intercellular signals. An internalized distribution of receptors is a marker of activated receptors while a plasma membrane distribution indicates no activation. Dr. Micevych is developing and refining the immunocytochemical techniques that will allow him to monitor the activation of specific receptors on individual cells or even single dendrites. He will use this methodology to define the neurochemical signature by which the gonadal steroids estrogen and progesterone affect brain activity to regulate reproductive behavior. Specifically, Dr. Micevych will use a combination of confocal fluorescence and brightfield microscopy to determine the role of two recently discovered endogenous opioid peptides, endomorphin- 1 and orphanin FQ/nociceptin, and their receptors in the regulation of steroid-induced reproductive behavior. This exciting and novel method for the visualization of receptor activation of discrete neurons will provide a better general understanding of receptor function and neural circuits as well as shed new light on the mechanisms by which estrogen and progesterone act to stimulate neural circuits that underlie behavior.